Southeast Geometry Seminar

Abstract

Award: DMS-0940878
Principal Investigator: Gilbert A. Weinstein, Mohammad Ghomi,
John E. McCuan, Vladimir I. Oliker, Fernando A. Schwartz

The proposed program continues in expanded format a multi-year a
series of semiannual one-day events focussing on geometric
analysis titled Southeast Geometry Seminar (SGS). These events
will be hosted in rotation by the following institutions: The
University of Alabama at Birmingham, The Georgia Institute of
Technology, Emory University, and The University of Tennessee
Knoxville. Five speakers will be invited for each event. A
poster session will be hosted. Annual proceedings, including an
open problems section, will be published. The main goal of these
short and frequent meetings will be to attract researchers and
students, working in geometry and related fields, who can travel
to the sites above at a relatively low financial cost, and to
foster collaboration between neighboring geometric analysis
research groups.

Geometric analysis is at the intersection of a number of
important fields of mathematics and mathematical physics. It has
enjoyed a fast growing interest in recent years, partly due to
the interaction with other scientific and technological fields.
The activities proposed are aimed at fostering collaboration
between geometers and researchers in related fields in the
southeast. SGS has been running for seven years and has had an
strong impact on geometric analysis in the southeast. A
continuation of this program will assure that geometry research
groups at participating institutions and other neighboring
institutions grow further, and attract graduate students and
post-doctoral trainees. The training of these young researchers
will supply personnel needed in this area both for academic
positions and in related technological and scientific
disciplines.

The website for the conference series is:
http://www.math.uab.edu/sgs/